Correlation and Localization in 2D and 3D Electron Systems

Far infrared magneto-optical and magneto-transport studies of interacting electron gas systems will be investigated. The main thrust of this research will be on quasi-3 dimensional (Q3D) electron gas based on wide parabolic well structures grown epitaxially with gallium-aluminum arsenide heterostructures. The research involves the study of Q3D magneto-plasmons in these systems with the ultimate goal being the discovery of the Wigner crystal. The plans also include the study of magneto-plasmons in the two-dimensional electron gas system because of magneto-rotons associated with the fractional quantum Hall effect. The equilibrium properties of the upper Hubbard band for silicon in doped gallium arsenide will also be studied, as will impurity band formation in two-dimensional delta-doped gallium arsenide.